Collaborative Research: CI-ADDO-NEW: TrustHub: Design of Trust Benchmarks, Hardware Validation Platforms and a Web-Based Dissemination Portal

Objective:
The objective of Trust-Hub project is to lead a community-wide movement toward stronger assurances in
the digital hardware industry. The Trust-Hub is a means for information sharing between researchers and
practitioners to accelerate the development of defenses against hardware-level attacks. This project
proposes the development of Trust-Hub, a central web-based repository for technical papers, benchmarks,
hardware platforms, source codes, tools, and other information that accelerates hardware security research
and developments.

Intellectual Merits:
This project plans to develop benchmark circuits infected with hardware Trojans (called trust
benchmarks), create hardware platforms to validate trust benchmarks, and develop a web portal to
accelerate research and development in hardware security and trust. The project includes (i) creation of a
large set of static trust benchmarks, (ii) benchmark complexity analysis, (iii) procedures to dynamically
generate trust benchmarks with hard-to-detect Trojan instances, (iv) platforms for hardware emulation and
validation of Trojan detection methods, (vii) a web-based repository called Trust-Hub, and (viii)
comprehensive validation test suites.

Broader Impacts:
The results of this project would be of interest to fab-less semiconductor companies, US government
agencies and university researchers worldwide. Benefits to the society include trustworthy electronics for
healthcare, defense, weather forecasting, finance, transportation, and automotive applications. By
integrating the results of this project into existing courses and by offering new courses in the
undergraduate and graduate curriculum, the PIs will impart cutting-edge engineering knowledge to
students and improve their hardware design, security verification and test skills.